Engineering Research Equipment: Differential Scanning Calorimeter

A differential scanning calorimeter with accessories is acquired. This will be used to measure heats of reduction and of reoxidation of metal-oxide catalysts. The initial systems to be studied will be based on vanadia or molybdena. The data from these studies, together with spectroscopic data from other studies, will be used to establish the energies of surface-oxygen bonds. This information, in turn, can be used to predict surface reactivity and catalytic behavior.